Young Engineering Scholars Program

The School of Engineering of Western New England College, in cooperation with the mathematics and physical science faculty from the School of Arts and Sciences, proposes to conduct a program to stimulate the interest of high ability eighth grade students in science and mathematics with application to engineering, to give them hands-on experience in various aspects of engineering and science, and to provide mentors and role models, with the result that they will elect to take and persist in math and science courses in high school that will qualify them for post-secondary education leading to careers in engineering and/or science. The college proposes to accomplish these goals through activities planned for a six-week summer program for students followed by a series of after-school sessions one day a week during the academic year. Interaction with local industries relevant to individual projects is also planned in the form of plant visits and a day in industry one-on-one as understudies to practicing engineering or scientists. The program will be an expansion of two different pilot programs that have been conducted successfully during the past few months with groups of underachiever junior high students.